Valuation of the Output of Engineering Research Centers

9500138 KING This proposal addresses a longstanding problem in industry- university research collaborations, namely, establishing the value to industry of the partnerships. The proposer seeks to use asset valuation methodology, a financial management technique, to derive the value of intangible results of industry-university research collaboration, e.g., intellectual property and hiring of new degree recipients whose university training included involvement in the collaboration. The proposed work entails conducting preliminary work on the untested and novel idea of using financial valuation techniques to establish the value to individual firms of outputs from industry-university research collaboration. The PI proposes to try the technique with one Engineering Research Center. ***